ITR: An Integrated Approach to 3D Photography Using Shape, Texture, and Motion Cues

Proposal ID: 0312438
Institution: University of Illinois
Principal Investigator: Jean Ponce

This proposal addresses some of the key scientific challenges that still impede the deployment of technologies for acquiring realistic visual models of the shape and appearance of complex 3D scenes from collections of images. The ability to do this has wide application across a number of areas related to electronic commerce, entertainment iand broadcasting industries and human computer interaction environments. The project will produce novel models of object shape and appearance and effective algorithms for instantiating the models from image data. This will be acccomplished through research activities in the areas of image-based construction of mesh models of complex surfaces from photographs, automated matching and registration of photographs from different viewpoints and development of structure-from motion techniques.